IDBR: An Automated, High-Throughput Micro System for Precision Imaging and Ablation of Cells

This is a proposal to develop a microfluidic device for automated high-throughput live-cell imaging and laser ablation. Laser ablation is a precise method for removing material from the surface of the sample. By automating laser ablation of cells, the device will decrease systematic user biases. The device is directed toward research on the worm C. elegans and is applicable also to systems such as zebrafish embryos and Drosophila.

Live microscopy of whole organisms and physical ablation of cells are two important techniques in biology, especially in the areas of development and neuroscience. The device designs from this award will be made available to the public and can be easily adapted for different applications. Graduate students, undergraduate students, and high school students will be involved in testing the device, to improve its user-friendliness and to broaden the experience of the high school students involved.